Travel Grant for Planning Visit to Mexico

9820970

Garcia

This Americas award will support a visit to Mexico for Drs Oscar Garcia and Ardeshir Goshtasby, Wright State University, Dayton, Ohio, to plan a collaborative research proposal in the areas of computer graphics, computer vision, and human-computer interaction, with Dr. Issac J. Rudomin, Centro de Tecnologia de la Informacion of ITESM-CEM in Mexico City.

Topics for discussion during the proposed visit will include simulation of visually detectable features in the production of speech, analysis (recognition) and synthesis (production), and potential experiments to address questions on major aspects of human-computer interaction.

***